Enhancement and Integration of Resources for Elementary Physics Laboratories

For over 20 years College of the Mainland has been supportive of experimentation and innovation in the physics laboratory, leading to a wide variety of experiences for students in eight physics course offerings ranging from strictly conceptual-based courses to calculus-based modern physics, rather than the traditional set of experiments. All courses may be taken in a traditional or individualized, self-paced mode. The laboratory is open throughout the day and at least two evenings per week; laboratory work is worth 50% of the student grade.For over 30 years the PI has developed, modified, utilized, built, bought and tried out software and hardware from a variety of sources. There are now over a 1,000 experiments that students may select to meet their laboratory requirement. This has resulted in a tremendous bookkeeping and inventory problem because resources are utilized from several areas on campus that do not always meet the specific demands of the particular experiment.Support has been obtained for updated, uniform, particular hardware and software that is being maintained in the Physics Learning Center and thus is being made available to more students in an immediate teaching environment. The essential equipment consists of eight microcomputers, two laser printers, four CD- ROM drives, four Labview 2s, four Universal Lab Interfaces, and associated sensors and probes.